Study of spin structure of hadrons using intermediate energy photons

Ever since the discovery that elementary particles have spin, it has
been clear that the strength of the interaction between these particles
depends on the relative orientation of these spins. Until now, however,
with higher energy electromagnetic probes (photons) it has only been
possible to study properties averaged over all possible spin
orientations. Support for this proposal will allow the experimental
nuclear physics group at The Catholic University of America to continue
to develop and then exploit new systems which will permit the
independent orientation of both the photon and the target nucleus. The
research will address one of the major unsolved problems in hadronic
structure, the nature and number of excited states of the proton and
neutron. The spins of the individual quarks that make up the nucleon
determine the properties of the excited states. There are many
predicted excited states but only a few have thus far been unambiguously
identified. The question remains as to whether this is due to some
additional aspect of the theory not yet understood or due to
experimental problems in detecting these excited states. Much of the
experimental difficulty lies in the broad and overlapping nature of
these excited state resonances. It is only by performing measurements
that selectively excite only a few of these resonances at a time that
the properties of the individual states can be cleanly studied. In the
proposed studies we will use a newly commissioned polarized photon beam
line and a new polarized target, along with a high-resolution,
high-energy photon tagger to determine the photon energy, to initiate a
number of detailed studies of these resonances. Such measurements will
cleanly discriminate between competing theoretical models and lead to a
much better understanding of the nature of the fundamental forces
between the quarks.

There are two areas where this research will have broader impact outside
the study of fundamental quark interactions. The proposed research will
provide training for postdoctoral associates, graduate students pursing
an advanced degree, and undergraduate physics and engineering students.
These training activities will cover a large range of experimental
activities including experience with cryogenics, high-speed electronics,
particle detectors, vacuum systems, and data processing. This training
will enhance the pool of scientifically and technically trained talent
available in this country. Most of the research that will be conducted
within this proposed program will involve the development of
instrumentation and experience with the use of energy-tagged polarized
photon beams. These activities will lead to improvements which will be
essential to the future experiments, including those at higher energy,
now being planned.